MGR Honorable Mention: Rose M. Belforti

This special award will give Ph.D. student Rose Belforti flexibility in pursuing her graduate studies and research initiation in Systematic Biology. This award will strengthen minority research participation in this area.//